Assessing the Accuracy of Self-reported Pollution Data

Information provision is increasingly used as a regulatory tool. The
Environmental Protection Agency's Toxics Release Inventory (TRI) program
requires manufacturing facilities that handle threshold amounts of specific
chemicals to report yearly their releases and transfers of these toxic
substances. This project investigates how accurate TRI data are and what
factors give rise to errors or evasion in self-reporting.

The proposed research uses two different methods to assess the accuracy
of TRI data. For 12 of the chemicals covered by TRI reporting, the EPA samples
air concentrations of these chemicals using a network of monitors across the
country. Geographic information systems (GIS) software allow one to determine
which polluting facilities are within range of the EPA's monitors. The
researchers can thus compare how measured trends in pollution from monitoring
data match self-reported trends on air releases by the polluting facilities. To
investigate potential divergences between the monitoring data and TRI figures,
the analysis will also explore how the nature of the surrounding community,
state environmental enforcement, and company and facility-level characteristics
affect the apparent accuracy of the reported TRI air emissions. The comparison
of reported TRI figures with expected distributions of emissions digits offers
a second way to assess the accuracy of pollution data. The key insight is that
if facilities are estimating emissions with a downward bias, the overall
distribution of digits will not follow the same pattern as the actual digits in
the monitor data. This research will demonstrate the degree that selected
physical monitoring and analysis of data patterns for statistical bias can help
determine the accuracy of self-reported data.